Regulation of DNA Replication and Cell Growth

This study is designed to elucidate the function of the dnaB gene of B. subtilis in the regulation of DNA replication and its relation to cell growth. The dnaB gene is required for the initiation of DNA replication and for the attachment of the origin of replication to the cell membrane. An attempt (i) to isolate the product of the dnaB gene; (ii) to characterize the gene product biochemically; (iii) to characterize the abnormal products of plasmid DNAs which replicate in the absence of dnaB function; (iv) to examine the effect of the dnaB gene on the expression of an RNA encoded near the oriC; (v) to examine the mode of expression of the dnaB gene during cell growth. The long-term goal is to understand the molecular bais of the regulation of chromosomal replication and determine how replication is coupled to cell growth. Replication of bacterial DNA usually starts at a unique site, the origin, and proceeds bidirectionally around the circular genome to the termination site. After completion, the daughter chromosomes are partitioned into the daughter cells that result from cell division. An important step for both replication and partitioning of the daughter chromosomes is attachment of the origin to the cell membrane. Dr. Watabe will investigate a gene in B. subtilis, dnaB, that is required for both initiation of replication and membrane attachment. His major goal is to isolate and characterize biochemically the protein encoded by the dnaB gene. This study should provide basic information about the control of cell proliferation in bacteria and may serve as a model for understanding regulation of cell division in higher organisms.